Foundations and Practice of Social Measurement

Social measurements derived from informant judgements are widespread and improvements in their quality are critical to advancing social science research. Examples of these measurements, drawn from various areas of social science, include: ratings of occupational prestige in sociology, rankings of friendship in social networks and social psychology, determinants of group preferences in social choice, judgments of the similarity among kinship terms in anthropology, and judgments of the seriousness of crimes in political science, etc. The long range goal the this research is to contribute scientific methods to improve the quality of social measurements that depend upon aggregating the judgments of informants. Social concepts such as cultural beliefs and social norms are defined by social conventions, with no outside criteria for comparison. Measurements must be inferred from the pattern of responses among informants, obtained in field settings with limitations on time, facilities, and number of informants. Combining methods from foundations of measurement and statistical modelling, this research probes the fundamental logic underlying two problems basic to social measurement: (1) How can one meaningfully infer item attributes from responses of informants, each of whom may be calibrated on a different scale ? Meaningful social attributes should satisfy some sort of invariance under permissible transformations in the response scales of each informant. Improved measures of interitem similarity and social network concepts will result from such investigation. (2) How can one assess the quality of the information provided by each informant in order to arrive an an optimal weighting scheme for aggregating responses ? The research develops new statistical models for different scaling techniques such as magnitude estimation, paired comparisons, and the constant sum method. The models will allow researchers to optimize the reliability of aggregated data. The significance of the research is that it will provide new methods of social measurement comparable in quality to those used in such areas as psychophysics, where comparisons with objective physical stimuli are utilized. The interdisciplinary collaboration of the two investigators has been extremely successful in the past. The promise of their ambitious research agenda, both in its conceptual significance and practical import, is equally great.